Velocity Related Critical Phosphorus Concentrations in Flowing Water: Phase III

The objective of this project is to continue determination of factors that influence the formation, growth and accumulation of algal biomass on surfaces in contact with water flowing natural streams. The effects of velocity, phosphorus, scouring and grazing on the accumulation of filamentous algae to nuisance levels will be studied under varying conditions of nutrient enrichment. This project is a renewal of research conducted under NSF Grants No. 8304731 and 7918514 in which the effects of velocity variation and suspended solids concentration (both of which increase during storm runoff events) were evaluated with respect to their relationship to critical levels of phosphorus concentration on development of nuisance-level accumulations of algal biomass. Effluents from domestic and industrial wastewater treatment plants provide nutrient enrichment of surface waters in lakes and streams which may result in nuisance-levels of filamentous algae. In addition, urban stormwater runoff from urban and agricultural land contributes to the nutrients available for stimulation of algal growth. An improved understanding of the factors that lead to nuisance-level accumulations of algal biomass may lead to better engineering design of treated wastewater outfalls and better management of drainage from urban and agricultural land to minimize the pollutional impact of these nutrient sources on the quality of surface waters, especially flowing streams.